SGER: Ecosystem Recovery Following Three Centuries of Livestock Grazing in Central New Mexico

Sevilleta LTER study site has become a regional focal point in a debate centered on whether total release from grazing (a refuge) is detrimental to diversity and primary productivity. While detailed studies are occurring on the Sevilleta, there are few comparative studies on adjoining grazed land or land recently released from grazing pressure. The current Sevilleta LTER Program is being conducted on a site that may itself be undergoing successional changes following release from over three centuries of intensive livestock grazing. It is imperative to isolate and understand the post-grazing changes on the Sevilleta landscape in order to identify future sources of long-term ecosystem changes; without a separation of grazing influences, efforts to attribute observable ecosystem changes to other causes, such as climate change or anthropogenic factors, will be confounded. The Sevilleta National Wildlife Refuge was established in 1973, and livestock exclusion fences were erected in that year. The summer of 1972, one year prior to livestock removal, was an unusually wet period, and was followed by a strong El Nino during the winter-spring of 1972-73. The combination of a very wet summer followed by a wet spring may have only a 20 year frequency pattern. In view of the importance of moisture regimes on arid ecosystem functioning, the antecedent conditions on the Sevilleta in 1973 may have fostered an unusual "successional trajectory" that would be difficult, if not impossible, to simulate experimentally in the field. However, an opportunity to perform just such an experiment has arisen as a result of the unusually wet weather patterns that have occurred in central New Mexico in 1991-92. The Sevilleta experienced an extremely wet summer in 1991. The Sevilleta is presently in the midst of a strong El Nino that is producing late winter and spring moisture. The current weather conditions have set the stage for studies that could simulate the transition that occurred on the Sevilleta after 1973. This combination of climatological events may occur only rarely (once every few decades) and it is important to initiate studies immediately to take advantage of these unusual circumstances. This SGER project is based on (1) the fundamental need for site- specific information on ecosystem effects of livestock removal, coupled with (2) the coincidental occurrence of weather conditions that are very similar to those of nearly 20 years ago.